NSF Young Investigator: Object-Oriented Language Design and Implementation Research

Object-oriented programming promises to make programs easier to write, easier to extend, and easier to reuse. The Cecil project aims to help object-oriented technology deliver on this promise through integrated language design, implementation, and programming environment research. The Cecil language is a purely object-oriented language which is serving as a vehicle for investigating new language features. Current research includes studying more flexible kinds of method lookup based on symmetric multiple dispatching, investigating the effectiveness of advanced static type systems at expressing practical object-oriented programming problems, and developing new module constructs that support application-specific tailoring of objects. Programming environment support for these and other features of object-oriented languages is crucial for effective use of object-oriented programming styles. Advanced language designs and programming styles only impact practice if efficient implementations are available. The Vortex compiler project is investigating whole-program analysis. Interprocedural analysis of object-oriented programs is the foundation of this work, dynamic profile information is treated as an integral component of the compiler, helping to focus the compiler's efforts on profitable optimizations. Incremental recompilation techniques for object-oriented languages help to keep turn-around time short. The Vortex compiler initially targets the Cecil language, with front-ends for other languages such as C++ planned for the future. The Vortex compiler is written in Cecil itself, providing feedback for the language design research and a realistic benchmark for the compiler research.